X-Ray Diffractometer and CCD Detector for Small Molecule Crystallography

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at The University of California in Davis to acquire an X-ray diffractometer with CCD detector. This equipment will enhance research in a number of areas including the following: (1) studies of the geometry and reactive sites in fullerene chemistry; (2) identification of species produced during metalloporphyrin oxidative degradation; (3) structural parameters of luminescent heavy-metal complexes; (4) new superconducting materials with interesting magnetic and optical properties; (5) chemistry of model biological compounds and their metal complexes; and (6) recovery and synthesis of new natural products with biological activity. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.